Duke University Marine Laboratory as REU Site Facility

This award supports a Research Experience for Undergraduate site proposal to provide research experiences for selected undergraduates in the marine sciences, in order to acquaint them with the excitement and opportunities of academic research and to encourage them to contemplate going on to graduate studies and eventually careers in science research.